"The Elementary Mathematician" Project

This project will continue the publishing and distributing a quarterly newsletter aimed and elementary school teachers of mathematics: The Elementary Mathematician. The newsletter, already received by over 18,000 educators, contains application, hands.on materials for the usage of calculators and appropriate technologies, classroom.ready pull.out section of useful and fun materials, and articles assisting the elementary school teacher to relate important skills in estimation and number sense. The newsletter will feature ideas and articles by will.known educators as well as serve as a forum for materials developed through National Science Foundation elementary materials projects. The second year of the project will be devoted to developing self.sustaining resources for the publication, enabling COMAP to continue publication after NSF funding has ceased. Estimates place circulation at 40,000 per issue within two years.